NEESR-SG: Evaluation of Ground Rupture Effects on Critical Lifelines

The research addresses a fundamental problem affecting all underground lifelines, namely the effects of
large differential ground deformation on buried pipeline and conduit performance. The research will
produce a seminal outcome through state-of-the-art modeling and quantification of earthquake-induced
ground movement effects on lifelines. It also will improve the design and construction of lifelines affected
by landslides, mining, extraction of subsurface fluids, and underground construction. The research
deliverables include, as a minimum: 1) systematic assessment of lifeline performance under permanent
ground deformation, 2) quantification of serviceability and ultimate limit states for critical lifelines, 3)
design guidelines, 4) experimental databases for benchmarking future numerical models and guiding the
evolution of numerical simulations for soil-structure interaction, and 5) validation and guidance for
advanced materials as well as sensor and robotics deployment in underground conduits.

The research will be performed through physical modeling using the Cornell Large Displacement Soil-
Structure Interaction Facility for Lifeline Systems and the Rensselaer 150 g-ton Geotechnical Centrifuge
in combination with advanced computational simulation. The 4-year program is organized according to a
matrix management approach in which lifeline response to a comprehensive suite of ground rupture
patterns is systematically investigated and checked through large-scale experiments, centrifuge tests, and
numerical simulation.

Technical Merits: The research team at Cornell and Rensselaer has extensive experience in the design,
siting, and construction of underground lifelines, as well as laboratory and field testing of
pipelines/conduits. They have worked extensively together and have earned a strong national and
international reputation for their contributions to lifeline, geotechnical, and structural engineering.
Moreover, they will follow a meticulous and systematic plan for the research that is thoroughly integrated
and managed. They will use world-class NEES facilities that were constructed specifically for this type
of investigation. Research investments through the proposed project will be leveraged into improved
practices for water, electric power, gas and liquid fuel, telecommunication, transportation, and wastewater
conveyance lifelines representing hundreds of thousands of km of US facilities critical for the delivery of
community resources and services.

Broader Impacts: The proposed project addresses safety and reliability of critical infrastructure while
also creating an innovative outreach program with the Sciencenter of Ithaca, NY. The project team will
develop a 300-SF museum exhibition on earthquake engineering and will explain how engineers at NEES
sites study earthquake effects using networked experimental facilities. An interactive shake table that can
be controlled by anyone on the Internet will allow museum visitors, school classes, and home users to
participate in earthquake engineering experiments, reaching an estimated 600,000 individuals over four
years. The project will model a process for how other NEES sites can link with 400 science centers
throughout the U.S.

The project involves substantial collaboration with industry, including ADS, Inc., Corning, Inc., Exxon
Mobil, Los Angeles Department of Water and Power, Phillips Driscopipe, Inc., Tokyo Gas Co., Ltd., and
ULC Robotics, Inc. Hence, the research results will be guided by industry for maximum impact in
practice, continuing education of the U.S. work force, and nationwide dissemination in infrastructure
projects.

The project will receive assistance from Cornell in supporting women and minority summer research
experiences for undergraduates, and will benefit from a Sciencenter program that will support teenage
museum guides from underserved communities. Additional undergraduate support will be sought through
the NSF REU program, graduate students will be supported, and research results will be integrated into
courses taught by the PIs and their colleagues at Cornell, Rensselaer, and other institutions.